Workshop: New Paradigms for Developing Peta-Scalable Codes

This award is to organize a workshop entitled: "New Paradigms for Developing Peta-scalable Codes" to be held at the Pittsburgh Supercomputer Center on May 3-4, 2003. The two-day workshop will focus on languages and frameworks to facilitate the development of computer programs that will efficiently utilize many thousands of processors. The organizers have identified a number of outstanding speakers who will provide training on modern parallel programming languages, and specialized libraries that are useful in developing scaleable computer codes for massively parallel architectures.